Improved Teaching of Analytical Methods in an Undergraduate Molecular-Cellular Biology Laboratory.

This Biology Department is implementing a curricular change which is designed to provide Biology majors and other Science students with experience in using a modern, quantitative approach in their laboratory studies rather than the more descriptive approach of former years. Most changes involve the Molecular-Cellular Biology course which is being expanded into a two-semester format. There is a parallel upgrading of its laboratories under way. New, significantly improved laboratory exercises are being made possible through the acquisition of a gas chromatograph, a UV-visible spectrophotometer and a liquid scintillation counter. Further improvements in the program are being made by extending the Department's new analytical capabilities to other courses, and by supplementing such work in the introductory laboratories for Science majors.